Improving Test Suites Via Generated Specifications

HDCCSR Proposal 0234651
Improving test suites via generated behavioral abstractions
Michael Ernst

Testing is a key to detecting bugs and increasing software reliability, but generating good test suites is difficult. This project investigates a novel technique for using behavioral differences to improve test suites. The technique compares dynamically generated behavioral abstractions of executions and selects the more complete one -- that is, the test suite that exercises more of the program's semantic behavior. Whereas previous automatic techniques compare dynamic (run-time) behavior to the static structure and text of the program, this new technique considers behavior, which complements structural techniques and is arguably more important.

The technique is applied to generating, augmenting, and minimizing test suites. Users provide the program to be tested and a technique for generating test cases (via a grammar, random generation, traces collected from users, or otherwise). Users never need to provide a specification. However, the technique generates a behavioral abstraction that is syntactically identical to a formal specification and that, after being checked and perhaps augmented by a human, can be
used as a specification. The efficacy of these techniques is investigated and improved, and they are applied in substantial case studies.